Conference: 2026 International Conference on Microbiome Engineering

The 2026 International Conference on Microbiome Engineering will focus on the latest advances in microbiome research tools, microbiome biology and microbiome engineering applications, bringing together key stakeholders from academia and industry who have aligned interests. The conference program features talks on a variety microbiome engineering-related subjects, including the genetically engineering of organisms that function within microbiomes, the control of microbiomes through
environmental/nutrient modifications, and the inference of engineering principles from the analysis of synthetic and natural microbiomes. The conference covers a broad range of research areas and applications of microbiome engineering, which creates a unique environment for people with diverse expertise to gather and exchange information. Additionally, the conference aims to give students and early career professionals opportunities to share their work, to network with the foremost leaders in the field, and to develop their careers.

The field of microbiome engineering is one of the fastest growing and highest impact areas of modern research, with applications in agriculture, ecology and medicine. The 2026 International Conference on Microbiome Engineering will bring together biologists, chemists, and engineers to discuss the ability of microbiome research to address fundamental and applied problems. The sessions feature a broad range of emerging technologies and a diverse set of topics that will impact the next decade of research. The conference is designed to bring together researchers and experts from academia, government and industry in a highly interactive and engaging meeting. Early career and established researchers will have opportunities to interact during organized talks, poster sessions, panels, and many informal gatherings. This platform will allow established and early career scientists to discuss challenges in the field and to establish collaborations to address these challenges.

This conference has been co-funded by the Engineering Biological and Biomedical Systems Program in the Chemical, Bioengineering, Environmental and Transport Systems Section in the Directorate for Engineering, and the Molecular Biosciences and Cellular, Development, and Physiology Sections in the Directorate for Biological Sciences.